AToL: Building the Dipteran Tree: Cooperative Research in Phylogenetics and Bioinformatics of True Flies (Insecta: Diptera)

With an estimated 150,000 described species, the insect order Diptera (the true flies) is one of the most diverse branches on the Tree of Life. The evolutionary relationships between the main branches of the fly tree are still largely unknown or controversial. Understanding the history of flies is critically important in biology and medicine because flies are model organisms for comparative research in genomics, development, neurobiology, and behavior (e.g., fruit flies, mosquitoes, house flies, medfly). Comparative research on flies depends on having a reliable estimate of their phylogenetic tree. We will reconstruct the fly tree in detail from an unprecedentedly large sample of comparative genetic and anatomical data. We will also integrate information from the exceptional fossil record of Diptera, from emerging genomic and developmental databases, from new and existing specimen data, and from previously published phylogenetic trees. The project involves a collaborative effort among a large, international team with extensive research expertise in fly biodiversity, genetics, and behaviour. The research team will also develop web-based bioinformatics tools for natural history information about flies, their biology, and impact on other fields of research. The task will be mastered in a three-tier approach. In the first tier, we reconstruct a backbone tree based on the first comprehensive morphological character matrix and large genomic data set for 42 species representing all major dipteran lineages and incorporating important model organisms. The second-tier analysis will use a more comprehensive species sample comprising at least one species for all fly families, more morphological characters, and a reduced amount of molecular data. In this tier we will also incorporate characters from well-preserved fossil species. The third tier will rely on the backbone trees reconstructed in the first two tiers for building a meta-analysis-based supertree for 1500-2000 species. Using these data within each tier of the project, we explore multiple comparative analytical approaches and sampling strategies for reconstructing the phylogenies of megadiverse taxa.
A more exactly specified Tree of Life for Diptera will provide a major organizing framework for the astounding diversity of flies and guide research in other areas of biodiversity. Molecular and morphological character systems and genes explored in this project should be extremely useful in resolving similar questions in other insect groups. Ultimately a comprehensive new phylogeny for all of Diptera will provide a valuable framework for testing evolutionary hypotheses critical in comparative studies of dipteran development, behavior, genomics, and neurobiology. The research team includes educational and research training experiences for K-12, undergraduate, and graduate students, as well as extensive research and career-building opportunities for several postdoctoral researchers. In order to efficiently communicate our results, we will build the 'Diptera Web.' This website will be the central hub for information on Diptera and present our trees, contain important electronic catalogs, genomic databases, a comprehensive anatomy atlas, interactive keys, and links to collection homepages. This resource will greatly expand the accessibility of primary information on flies to the research community, educators, and the public.